Research in Hybridoma and Flow Cytometry Technology

The Research Improvement in Minority Institutions (RIMI) program was designed to increase the participation of minorities in science and engineering research. The program provides support to strengthen the research capabilities of institutions that have substantial minority student enrollments. Eligible institutions must also have graduate programs in sciences or programs in engineering. Investigators at Meharry Medical College will use RIMI support to continue research in hybridoma and flow cytometry technology. Hybridoma technology permits the development of hybrid cell clones and monoclonal antibodies while flow cytometry allows the sorting of cells into populations and subpopulations. This work will lead to the continuing development of a competitive and productive hybridoma laboratory facility. The hybridoma and flow cytometry research laboratory is a centralized facility that assists researchers with the generation, production, and application of hybrid cell products by providing tissue cultures, media preparation, cell harvesting, and monoclonal antibody detection. The laboratory will meet the research needs of a productive institution that educates minority students in cellular and molecular science. The principal investigator was part of the Meharry team that received earlier Foundation support to design and establish the hybridoma laboratory. He has published several articles in refereed journals on cell biology. This RIMI project will use a hybridoma laboratory facility to encourage more minorities to select careers in science.